Soft Materials Research Center

The Materials Research Science and Engineering Center (MRSEC) at the University of Colorado at Boulder supports innovative research and education in liquid crystals, ranging from cutting-edge, basic liquid crystal and soft materials science to the development of enhanced capabilities for photonic, chemical, and biotech applications of liquid crystals. A multi-disciplinary team of physicists, chemists, biochemists, molecular biologists, chemical engineers and materials scientists work collaboratively on research and education projects. The Center offers a broad program of activities directed towards education and enhancement of science literacy. These include summer Research Experiences for Undergraduates and Research Experiences for Teachers. Its K-12 outreach program, Materials Science from Colorado University, brings Center personnel into classrooms and uses the understanding of materials to teach physical science concepts. Outreach activities to the public include the Liquid Crystal Wizards family science show. The MRSEC will participate in a University-wide program (Red Shirt Program) designed to offer a pre-freshman year of preparatory STEM instruction, communication skills development, and clustered housing to help prepare underserved high school students for success as science and engineering undergraduates. The Center pursues collaborative research with a variety of companies and international collaborators and offers its excellent experimental and computational shared facilities for outside users.

Research at the MRSEC is organized as a single Interdisciplinary Research Group, Liquid Crystal Frontiers, with three research thrusts. The Liquid Crystal Macro/Nano/Molecular thrust focuses on the science and technology of bulk and composite liquid crystal systems, pursuing the design and synthesis of new materials, and the discovery and exploration of novel themes of self assembly and ordering. The Active Liquid Crystal Interfaces thrust pursues the science and applications of soft interface structures, emphasizing those that respond to external stimuli, such as light, fields, or chemical composition, and in doing so affect the surrounding bulk media. The Functional Liquid Crystal Assemblies thrust advances the science and technology of hierarchically-structured soft condensed phases, emphasizing nanophase segregation as a path to novel functional materials.